Directing the synthesis of complex materials from metal fluxes

NON-TECHNICAL SUMMARY
This project systematically explores the synthesis of magnetic and electronic materials using molten metals as solvents. Elements dissolve in an excess of low-melting metal and then react to form complex materials known as intermetallics, which grow as large crystals as the melt cools. With support from the Solid State and Materials Chemistry Program in NSF’s Materials Research A Section, the Latturner group investigates the effects of adding additional elements to these reactions, to tune the properties of the products that are growing. By partially substituting one element for another, or by adding small atoms into holes in the structure, researchers can tailor the electronic and magnetic behavior of a solid. In order to discover fundamental principles that govern these reactions, this project focuses on two areas materials systems: One targets the growth of lanthanide-rich compounds which can be superconductors or have complex magnetic behavior that may enable advances in quantum information science, among other applications. The other system advances the discovery and growth of semiconducting compounds of silicon that contain mixtures of several different metal cations; these materials can convert waste heat into electricity. In addition to making new compounds with potentially useful properties and advancing knowledge of materials science, this project contributes to training the next generation of researchers. Students at Florida State University learn advanced synthesis and characterization methods and collaborate with major national laboratories to develop materials that may pave the way to better electronics and more efficient power sources.

TECHNICAL SUMMARY
This project, with support from the Solid State and Materials Chemistry Program in NSF’s Materials Research A Section, investigates the growth of new intermetallics from reactions in metal fluxes, and explores how their substitution and interstitial chemistry can be controlled using this synthesis method. Since they occur in a solution, metal flux reactions are inherently non-stoichiometric; as such, this work leads to greater understanding of how the structure and composition of a target material can be manipulated in this growth medium. The intermetallic compounds grown from lanthanide-rich fluxes exhibit complex electronic behavior, and their isolation and characterization enable greater understanding of phenomena such as spin glass behavior and superconductivity. Similarly, the metal silicides obtained from reactions in magnesium-rich fluxes likely have useful thermoelectric properties, and the targeted mixing of metal cations on several sites in the structure allows for better understanding of the ways that atom rattling, static disorder, and high entropy effects impact the electronic and thermal transport. The new materials discovered in this work may lead to development of improved magnetic and thermoelectric materials. Undergraduate and graduate student researchers are educated in materials synthesis, characterization, and structure-property relationships. This highly interdisciplinary work involves collaboration with scientists in chemistry, physics, and engineering, as well as the use of advanced facilities at Oak Ridge National Laboratory and the National High Magnetic Field Lab.